Ocean Network of Science Educators Using Technology

9809729
Reed

Ocean science faculty from the California State University and community college systems in the San Francisco bay area have developed the Ocean Network of Science Educators using Technology (ONSET), a program for the enhancement of K-16 science education through the use of technology and field-based methods. A pilot program of ONSET will introduce teachers to the ocean sciences through a series of workshops, coastal and sea-going field excursions, and school site visits. Teachers will be assisted in developing innovative curricula that combine the best attributes of technology-enhanced and field-based instructional methods. World Wide Web (WWW) technology will be used to develop a cummunity of teachers to share classroom resources that incorporate inquiry-based methods in student learning. Six days of teacher workshops, divided evenly between electronic and field-based concentrations, will be held in 1999, culminating in the fall 1999 ONSET conference at the Bay Conference Center of the Romberg-Tiburon Center where marine research scientists will discuss educational outreach projects and current research issues with local educators, including potential future participants in the ONSET program.